EAGER: Renewables: Demand response algorithms to improve electric power system stability margins

Power systems with high penetrations of renewables operate with relatively low stability margins. Spatial demand response (DR), i.e., ways of controlling the demand for electricity throughout a geographic area, can be used to improve power system stability margins and may be less expensive and/or less environmentally impactful than alternative approaches to maintain power system stability. Additionally, increasing the potential uses of DR increases its value, making it more attractive for load aggregators and consumers to invest in sensing and communication technologies that enable it, in turn benefiting all DR applications. Results obtained through the the project will inform energy policy, for example, the design of new electricity markets and/or out-of market products to compensate loads for improving power system stability. The work will contribute to the training of one PhD student and the PI will develop a course module for a new graduate course on electricity markets and optimization. Additionally, the methods and results will be communicated to practitioners through "Spatial DR Fact Sheets."

The investigators will survey existing stability margin measures and develop a short list of measures that exhibit a good trade-off between accuracy and computational complexity. The researchers will then formulate variants of the spatial DR problem, considering varying levels of realism and complexity. They will develop algorithms to solve variants of the spatial DR problem, focusing on the development of approximations that improve solvability at the expense of solution accuracy, for example, simplified representations of stability margins. Additionally, the research team will analytically and empirically evaluate the developed algorithms to determine expected and worst-case performance (in terms of stability margin improvement). Empirical testing will also allow for quantitatively exploring a variety of topics including: (i) how the parameters of flexible load impact the ability of DR to improve power system stability margins; (ii) how renewables impact stability margins and how spatial DR can be used to mitigate those impacts, enabling higher penetrations of renewables; and (iii) how the value of spatial DR changes as the level of renewable generation increases.